CyberAI SFS: Multi-Pathway CyberAI Scholarship for Service

The United States faces a critical and growing shortage of professionals trained at the intersection of artificial intelligence (AI) and cybersecurity. Government agencies increasingly rely on AI to detect threats, automate defenses, and respond to incidents, yet the AI systems underlying these capabilities are themselves targets of adversarial attack. Addressing this dual challenge requires a new kind of professionals who can both secure AI systems and apply AI to strengthen cyber operations. This project at the University of Rhode Island (URI) will produce such professionals through a scholarship-for-service program that combines rigorous graduate education, hands-on research, and structured preparation for government careers, directly serving the national interest in cybersecurity and AI workforce development.

URI's CyberAICorps Scholarship for Service program will support two cohorts of graduate scholars in URI's Professional Science Master's in Cybersecurity, with scholars completing a purpose-built CyberAI track that includes two new courses: Securing AI Systems, covering adversarial machine learning, threat modeling of AI deployments, and defenses against model evasion and poisoning; and Applied AI in Cybersecurity, covering AI-driven threat detection, intelligent log and network traffic analysis, and large language model-based cybersecurity workflows. The program is anchored by four semesters of a structured professional development seminar refined over five years of URI's current National Science Foundation CyberCorps Scholarship for Service award, integrating federal job search preparation, cybersecurity and AI competition training, government framework instruction, and K-12 community outreach. Scholars will engage in faculty-mentored research through a two-semester Cybersecurity Project sequence and complete a qualifying government internship. Four flexible entry pathways including a bridge program for students from non-computing backgrounds ensure that scholars are recruited from the full breadth of American talent. This program will produce graduates prepared to fill critical CyberAI roles across the federal government.

This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.